Cenozoic Chronology and Vertebrate Faunas of Bolivia

This project will study the 30 million year record of mammalian faunas exposed on the Bolivian altiplano. This renewal will capitalize on, and expand upwards in time from the results of the previous research. The objectives for the proposed research are to intensively work six known late Cenozoic (Miocene-Pleistocene) sites and to prospect for new localities that will fill in the sequence known to exist in this region. In so doing, we could use our results to temporally trace 30 million years of well- calibrated evolution in a localized area and also make spatial comparison with other important Cenozoic sequences in South America, e.g., the classic sites in Argentina.